Analytical Instrumentation for Marine Biomedical, Biogeochemical and Biological Research at the Lewes Campus

This project will support the purchase of a continuous flow nutrient analyzer. The contiunous flow nutrient analyzer would rapidly and automatically determine the concentrations of at least five compounds. The high-resolution data set which can be produced is essential for examining questions about the controls of marine biological production, the exchange between land and estuarine ecosystems, and the utilization of nutrients in controlled laboratory experiments. The requested instrumentation would be used by a majority of the faculty at the Lewes Campus of the College of Marine Studies (CMS). The Lewes Campus, which houses the only marine biological laboratories in Delaware, has 22 faculty and 56 graduate students, and is a NSF supported Research Experience for Undergraduates (REU) site. The Lewes Campus has grown in size and prominence (onc: member was elected to the National Academy of Science) over the last five years. In recognition of this growth, the University of Delaware is constructing a new building for Biogeochemistry that will house the requested instrumentation.